Application of X-Ray Absorption Spectroscopy to Study Structure in Biological and Chemical Systems

This research, jointly supported by the Physical Chemistry Program and the Biophysics Program, develops the theory and application of X-ray absorption spectroscopy directed to the structural characterization of selected metalloproteins. These studies will contribute to the elucidation of the general principles underlying the structure-function relationships of metal centers with the associated protein. The coordination and the electronic environment of the metal atoms in metalloproteins will be probed as a function of redox state and of substrate and inhibitor binding. In addition, a number of high-valent heme-iron protein systems will be characterized in order to define the range of structures that occur in states that have iron-oxo units and related compositions. Theoretical and experimental work will be performed to enhance the ability to extract structural information from X-ray absorption edge spectroscopic studies.